Dynamic and Randomized Load Distribution for Tree-Structured Parallel Computations on Static Interconnection Networks

PROPOSAL NUMBER: CCR-0091719
TITLE: Dynamic and Randomized Load Distribution for Tree-Structured
Parallel Computations on Static Interconnection Networks
PI: Keqin Li

This three-year project will investigate the performance of the class
of random-walk-based algorithms for dynamic tree embedding to support
tree-structured parallel computations on various static networks.
The research will be conducted within the framework of the product of four
spaces, namely, the embedding algorithm space, the tree model space,
the static network space, and the performance measure space.
The overall research objective is to thoroughly investigate and understand
the behavior of randomized tree embedding produced by random-walk-based
algorithms in static networks to the largest extent.
The methods include devising embedding algorithms, proposing random
tree models, developing analytical tools, formulating mathematical equations,
generating numerical data, observing and proving general properties,
and simulating dynamic embedding.
The project is motivated by the fact that there are a wide spectrum of
tree-structured applications in computer science and engineering
and the wide availability of distributed memory multicomputers
with static interconnection networks.
The significance of the project is reflected by its wide coverage of
various randomized tree embedding algorithms, a number of deterministic
and probabilistic tree models, a wide range of static interconnection
networks, and different performance measures.
Algorithms and methods obtained from this project will be readily used
to support dynamic load distribution for tree-structured parallel and
distributed computing, and will have great impact on various applications
on a variety of multicomputers and distributed systems.